Research Participation in Asia-Pacific Symposium on Wind Engineering

The Second Asia-Pacific Symposium on Wind Engineering Research will be held in Beijing, China, on June 26-29, 1989. The award is to support the participation of United States researchers in this quadrennial gathering which encourages international cooperation in research on wind hazards and their interactions with structures and buildings. The Wind Engineering Research Council will distribute the travel grants to speakers and chairmen of sessions.